HaRD: The Wisconsin Hierarchically-Redundant, Decoupled Storage Project

The Wisconsin Hierarchically-Redundant, Decoupled storage project (HaRD)
investigates the next generation of storage software for hybrid Flash/disk
storage clusters. The main objective of the project is to improve the
performance of storage in a variety of diverse scenarios, including new
application environments such as photo storage as found in Facebook and
Flickr, high-end scientific processing as found in government labs, and
large-scale data processing such as that found in Google and Microsoft. The
HaRD project focuses on three key issues in order to improve performance of
these important applications: client-side Flash-based RAID and file-system
integration, server-side memory reduction and multicore scheduling of
file-system tasks, and scheduled network transfers. HaRD pulls together these
technologies into a synthesized whole through three targeted storage systems:
a scalable photo server, a high-performance checkpoint subsystem, and an
improved file system for MapReduce workloads. The impact of this project is
significant, as HaRD helps to shape the storage software architecture of the
next generation of cloud computing services, which are of increasing relevance
to both industry and society at large.